Vertex Operator Algebras and Their Automorphisms

The principal investigator will investigate vertex operator algebras
and their automorphism groups. Holomorphic orbifold theory, and
rational vertex operator algebras will be studied. Relation among
vertex operator algebras, automorphism groups of vertex operator
algebras, quantum doubles, dual pairs will be discussed. The
automorphism group of a rational vertex operator algebra will be
determined. Certain rational vertex operator algebras will be
characterized and classified. Several fundamental problems in the theory
of vertex operator algebra are expected to be solved. The goal of
this project is to lay some further foundations of the theory of vertex
operator algebras and their representations.

String theory at present is the only candidate for a theory combining all
the fundamental interactions. Two dimensional conformal field theory
which is an important physical theory describing two-dimensional
critical phenomena in condensed matter physics provides a framework for
string theory. Vertex operator algebras are symmetry algebras in conformal
field theory. Physical theories, perhaps more often than mathematical theories,
typically start from particular structure, called the models. On the
other hand, mathematical theories abstract from the examples and predict
what happens in general. This is a research that
starts out in the field of algebra but moves beyond that to touch
invariant theory, quantum groups, modular forms, and conformal and
topological field theories. A successful study of this project will
lead to new mathematical discoveries which will be important both in
mathematics and physics.